CI-P:Collaborative Research:The Speech Recognition Virtual Kitchen

CI-P:Collaborative Research: The Speech Recognition Virtual Kitchen

This project provides a "kitchen" environment to promote community sharing of research techniques, foster innovative experimentation, and provide solid reference systems for automatically recognizing speech, as a tool for education, research, and evaluation. The research infrastructure is built around virtual machines (VMs), which can be reconfigured and shared easily. We liken the virtual machines to a "kitchen" because they provide the environmental infrastructure into which one can install "appliances" (e.g., speech recognition toolkits), "recipes" (scripts for creating state-of-the art systems for a toolkit), and "ingredients" (spoken language data), along with "dishes" (completed experiments with log-files for reference).

The planning project engages the community to tackle some of the issues that have previously hampered efforts in cross-community sharing, including distribution methods and intellectual property issues. The project also provides an example architecture, which serves as a focus point for community-wide discussion.

In terms of broader impacts, the project engages researchers and educators that typically do not participate in automatic speech recognition (ASR) research by providing travel scholarships to a workshop at INTERSPEECH2012. In a wider scope, the infrastructure may be useable by other data-intensive fields (synthesis, dialog systems, NLP, computer vision, data mining). By providing a permanent, publicly available resource for research, education, and evaluation in ASR research, we can better train the next generation of undergraduates and graduates. The "kitchen" gives them easy access to a large number of state-of-the-art implementations, and facilitates deeper analysis of algorithms and better comparisons across systems.